Mathematical Sciences: Scientific Computing Research Environments for the Mathematical Sciences

9403540 Curry The Program in Applied Mathematics at the University of Colorado will purchase computational equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: 1.) Numerically Induced Chaos, Sympletic Integrators and Nonlinear Wave Equations; 2.) Fast Numerical Algorithms: Wavelets; 3.) Dynamical Systems: Computational Experiments with Maps; 4.) Multilevel Methods for First Order System Least Squares Discretization of Partial Differential Equations; and 5.) Nonlinear Ocean Waves: Simulation, Chaos, and Field Data